Protein-Membrane Organization and Function: Gramicidin Channel

The long term goals of this research project are two fold: (1) to obtain a concise description of how an ion channel system functions efficiently in an ion selective mode and (2) to develop experimental techniques and theoretical interpretations that can be applied to the study of more complex biological transport systems in the future. Multinuclei-multidimensional NMR spectroscopy, together with peptide synthesis will be used to study the effect of single amino acid substitution in the gramicidin transport system. The effect of this substitution on channel structure, on the integration of the gramicidin into a membrane, on channel formation, and on cation binding and transport will be observed and characterized.